Duke University Marine Laboratory: Equipment and Facilities

As an interdepartmental, interdisciplicary facility of Duke University, the Marine Laboratory serves as the focus for marine research and educational programs of a resident research faculty of 34 representing five departments within the University with a supporting staff of 50 persons. In 1987, 47 investigators from 33 different institutions throughout the world utilized the facilities for periods ranging from two weeks to one year and a total of 3639 students and staff visited the Laboratory for shorter periods of time. Capital research equipment, wet and dry laboratory facilities, research vessels, dormitories, dining facilities, apartments, and vehicles are provided for the resident and visiting scientists. The Laboratory also maintains an electronics technician, mechanical, woodworking and computer equipment, and the A.S. Pearse Memorial Library. With the University of North Carolina, Duke maintains and operates the UNOLS vessel R/V Cape Hatteras. Recent trends in the research programs of resident and visiting scientists have demonstrated the need for modern equipment to permit the ananylsis of fixed and moving images. This project will provide funds for the purchase of a motion analysis system, a static image analyzer, and a drafting plotter.